Mathematics Content/Connections

9353364 Odom This is a four-year project designed to present staggered 3-year programs of mathematics content, pedagogy, and assessment for all the elementary school teachers, K-6, and school administrators in the 122 buildings in Montgomery County, Maryland. Teachers will be involved in up to 60 hours of preparation in content modules, which include extensive attention to how children learn that content. School administrators and teachers of special subjects are involved with focused activities for improving student performance in mathematics from their perspectives. The school building is the unit of administration in this program. All faculty and administration in the building will be involved in the project simultaneously. An additional 30 hours of activities is planned to be used by the entire faculty at the school site based on their needs assessment following the content component. The project materials are based on a broad base of materials from the mathematics reform and the research base being developed through another NSF-funded project: Project IMPACT carried out in the district. Project staff and district leaders will be available to teachers and administrators through the full 3-year cycle for each school. These individuals are in the district, and they have assignments which allow involvement in the activities and a availability for site support. Additional support is being developed through area colleges and universities which are planning to offer extended offerings for teachers and use the program as a model for the preservice education. The district will be able to monitor student performance on several measures used in the district including standardized testing, state testing, and district assessment programs which are being developed to include performance based activities. In addition, the project will monitor teacher and administrator changes through participant surveys and classroom observations.